Department of CSEM Enhancment Program at JSU

A minimum of 25 scholarships are being awarded annually to academically talented, low-income students pursuing degrees in computer science, engineering or mathematics. The program is providing faculty mentoring to all scholarship recipients and tutoring to aid in the transition from high school to university level studies. Undergraduate research in association with a faculty member is an integral part of the educational experience and presentation at the annual research seminar is expected.